AF: Distributed Random Sampling

A well-shuffled deck of cards, which is the typical starting point of a card game, is expected to have the property that every ordering of the cards is equally likely. Analogously, picking (or sampling) a particular arrangement of objects from a large collection of arrangements, such that every arrangement is equally likely to be picked and there is no bias in favor of one arrangement over others is a fundamental requirement in many computational applications, especially in machine learning. In classical computing, where computational steps are executed sequentially one at a time, there is a rich literature on efficient sampling methods. However, modern datasets are immensely large and growing in size and sampling problems, like many other computational problems, need to be solved at scale. As a result, modern computation is increasingly distributed and parallelized, where tasks are divided into parts and solved in pieces simultaneously across many communicating computers. This project will adapt existing techniques from classical computing and develop new techniques for sampling at scale in distributed computation models. The results of the project will lead to sampling methods that can be implemented in a highly efficient manner in various real-world distributed systems.

Research in distributed computing has extensively focused on constructing a feasible solution to a given constraint satisfaction problem (CSP) or finding an optimal or near-optimal solution to a given optimization problem. In contrast, the problem of sampling from a set of feasible or near-optimal solutions in distributed settings has received very little attention. For example, the Spanning Tree construction problem which seeks an arbitrary spanning tree of a given graph is quite well understood in various models of distributed computing, but the problem of sampling a spanning tree uniformly from all possible spanning trees is largely open. These substantial gaps in knowledge about the distributed complexity of sampling trees apply to a variety of other problems, including random walks, graph colorings, hypergraph colorings, and sampling solutions of CSPs. Closing these gaps is the primary focus of this project. In recent years, the area of sequential sampling has seen a lot of progress with the advent of new techniques such as walks on high-dimensional expanders, projected Markov chains, sampling using the Lovasz Local Lemma, sophisticated applications of coupling from the past techniques, etc. This project aims to leverage this progress to narrow the existing gap between the current knowledge of sequential sampling and distributed sampling.